Cancer Cell: Regulation of Eukaryotic mRNA Transcription September 6-10 1989. Cold Spring Harbor Laboratory in Cold Spring Harbor, New York.

The meeting on "Regulation of Eukaryotic mRNA Transcription" will be held at Cold Spring Harbor Laboratory in Cold Spring Harbor, New York. September 6-10, 1989. This meeting will ensure that the most recent results and methodologies in this rapidly moving field are discussed in an atmosphere which encourages interactions between established scientists and young students.